NSF Travel Grant Support for ACM WiSec 2016

This project provides travel support for United States-based graduate students to attend and participate in the 9th Association for Computing Machinery (ACM) Conference on Security and Privacy in Wireless and Mobile Networks (WiSec2016), which will be held at the Darmstadtium in Darmstadt, Germany, from July 18 to July 20, 2016.

WiSec2016 covers important timely topics in cybersecurity including, location privacy, anonymity, security of smartphones, jamming defenses, and usable mobile security. The workshop fosters communication and collaborations among researchers and practitioners with a shared interest in improving the security of wireless  networks and devices through scientific and technological innovation.